Quantized Fields in Nonlinear Dielectric Media: A Microscopic Approach

9602515 Hillery This is a collaborative project between Professor Mark Hillery of the Department of Physics, Hunter College, and Professor Peter Drummond of the Department of Physics, The University of Queensland, Australia. Over a three- year period, Professor Hillery will make several trips to Brisbane to work with Dr. Drummond on the study of the propagation of the quantized electromagnetic field in nonlinear dielectric media. This is important from a fundamental point of view because it provides an example of an experimentally accessible quantum field theory. From a practical point of view, the quantum noise in these fields must be understood if they are to be used for long distance communication in optical fibers as has been proposed. The models which have been used to treat these phenomena are either phenomenological or based on the quantization of the macroscopic Maxwell equations. A microscopic approach to the description of quantized fields in a medium of two-level atoms has recently been developed at Hunter College. Dispersion, which can be a problem in a macroscopic approach to quantized fields in dielectric media, is naturally incorporated into this theory. This description will be extended to a medium of 3-level atoms. This will allow the theory to encompass nonlinear processes, such as parametric down conversion, which were not described by the 2-level atom medium. The counterpart investigators will concentrate primarily on the description of how a field propagates from free space through a medium and emerges again into free space. The study of finite media should allow the collaborators to examine the input-output theories which are used in quantum optics at a more fundamental level and to address some of the problems which arise in them. The analytical and numerical techniques which the Australian counterpart has developed on the macroscopic level will complement what the principal investigator and his colleagues have developed at Hunter College on the microscopic model.